Learning and Equilibrium Selection

9320678 Samuelson Noncooperative game theory has become a pervasive theoretical tool in economics. Unfortunately, this theoretical success has not been matched by empirical applications, and noncooperative game theory is often dismissed with the charge that it makes no testable predictions. The primary difficulty in using game theory to make empirical predictions is the equilibrium selection problem: games typically have a multitude of equilibria, and game theory provides very little guidance as to how to choose between them. The project continues the development of an approach to the equilibrium selection problem based on evolutionary models of games, consisting of four components. The first is the construction of explicit models of how boundedly rational players learn to play games. These models are then used to derive dynamic processes describing the evolution of play. Third, the limiting outcomes of these dynamic processes are examined, with particular interest in how these outcomes compare to common equilibrium concepts. Finally, the robustness of the results to various types of trembles or noise int he learning process is investigated. More specifically, under the current grant the project extends existing, preliminary models of how boundedly rational players learn. Best-reply learning models are extended to new classes of games, including signaling games; and "noisy selection" models are extended beyond the 2x2 symmetric games to which they are now confined. With these models in hand, the heart of the research involves investigating the outcomes of evolutionary processes in the presence of various environmental randomness or "trembles." The preliminary results indicate that such randomness can have a profound impact on the evolutionary outcome. The proposed research addresses the apparent arbitrariness of evolutionary learning models by investing the evolution of the learning rules by which players guide their behavior.